Language Support for Parallel Scientific Computation on Distributed Memory Multiprocessors

This award supports continued research into programming language support for parallel scientific computation on (MIMD) distributed memory multiprocessors. It is becoming clear that this class of parallel computers will play an important role in the future of large scale scientific computation. Currently, however, such computers are very difficult to program. The goal of this research is to make it considerably easier and more natural to program these computers for large scale parallel scientific computation, without sacrificing the run-time efficiency of the resultant code. A second goal is to make such programs portable between different distributed memory multiprocessors. The main issues are high-level language support for parallel numerical algorithms that use dynamic data and process structures. The researchers will interact extensively with scientists who are (potential) users of these computers. This interaction is aimed at increasing understanding of the paradigms that underline the scientists' parallel algorithms, integrating these paradigms into programming language research, and assessing how well this research is meeting their needs.//